Empowering Teachers to Enhance Science Education

This 30 month project, sponsored by the Institute for Chemical Education (ICE) at Madison, will carry out the following activities: (1) Provide a two year intensive content and pedagogy summer workshop program for 50 high school chemistry teachers of minority students in the Los Angeles area. Activities include a strong follow-up program during the academic year. This program will be carried out on the campus of Mt. San Antonio College, Walnut, California. (2) Provide a two year intensive content and pedagogy summer workshop program for 40 middle school teachers selected from a national pool. The program includes laboratory and laboratory safety techniques, work with computer applications, study of the connections chemistry makes with other fields and training in outreach activities. Participants will have the opportunity to work with middle school students in the UW- Madison ChemCamp program. (3) Provide a two year intensive summer program for 25 teachers each year to learn how to use chemistry instrumentation in the classroom. This includes 15 master teachers, selected from the participants in the earlier instrumentation program, who will be given advanced training in the instrumentation and be prepared to give peer workshops in this subject. (4) Provide a one year program for 20 elementary school teachers to learn chemistry concepts and activities appropriate for the elementary school level. Associated with this program is the training of college faculty called ICE affiliates who will learn, through attending those sessions, how to carry out their own inservice program. The matching funds, contributed from the University of Wisconsin-Madison, constitutes 13% of the NSF grant.